Hawaiian Ocean Mixing Experiment: Broad SeaSoar/LAMP Surveys

Rudnick 9819521
Funding is provided to conduct a large coordinated experiment near the
Hawaiian Ridge to determine whether sites with rough topography are
responsible for the mixing of the global ocean. The goals are to identify the major
energy pathways for ocean mixing and achieve an approximate energy budget
for the region. The SeaSoar and Acoustic Doppler Current Profiler survey
alongside the Hawaiian Ridge will compile statistics of both stratification and
shear to identify sites of likely intense mixing and it will use recent internal waves
parameterization and estimates of vertical overturns to infer dissipation and
diffusivity. Deployment of several LAgrangian Microstructure Profilers (LAMP) will
help quantify thermal dissipation in both homogeneous and stratified regions of
the upper 400 m of the ocean.